U.S. - U.K. Workshop on Cellular Engineering

9523065 Nerem A Workshop on "Cellular Engineering" is to be held August 22-25, 1995, in San Diego, California. The purpose of the meeting is to assess the current knowledge of the emerging field of cellular engineering and future directions of research in this area. An equally important outcome will be the encouragement and possible development of collaborative efforts in cellular engineering between researchers in the U.S. and the U.K. ***